Tensor triangulated categories: geometry and applications

The PI's Tensor Triangular Geometry is an umbrella program covering the
geometric study of tensor triangulated categories in algebraic geometry,
modular representation theory, stable homotopy theory, motivic theory,
noncommutative topology, and beyond. Be they modules, spaces, motives or
C*-algebras, objects are usually too wild to be classified up to
isomorphism. However, one can always classify classes of objects stable
under the basic constructions which are: suspension, cone and tensor
product (such classes are known as thick tensor-ideals). This
classification is made by means of subsets of a certain topological
space, constructed by the PI and called the triangular spectrum. This
space has been computed in stable homotopy theory, algebraic geometry
and modular representation theory, using the work of Hopkins-Smith,
Neeman-Thomason, Benson-Carlson-Rickard and Friedlander-Pevtsova.
Computing the triangular spectrum in noncommutative topology
(equivariant KK-theory) or in motivic examples is a major ongoing
project where progress has recently been made. The broader ambition of
tensor triangular geometry is that of building brides across some parts
of mathematics as follows: Identify the concepts, results and techniques
from any area covered by tensor triangular geometry which can be
abstracted and consequently applied to all other areas under the
umbrella. Recent activity has exhibited numerous such phenomenons, in
the PI's work and beyond, like filtration by dimension of supports,
gluing techniques, Picard groups, Witt groups, and more.

Tensor triangular geometry is a relatively new theory which can
simultaneously claim a large catalog of examples ranging from Algebra to
Analysis, a strong corpus of abstract techniques and a broad range of
applications. The strength of tensor triangular geometry is illustrated
by several new theorems in algebraic geometry and modular representation
theory, whose statement does not involve tensor triangular geometry but
whose proof does. This project is highly interdisciplinary and appeals
to mathematicians from very different horizons.